Fully Nonlinear Free Boundary Problems, Stochastic Symmetrization, and Asymptotic Symmetry of Parabolic Equations

ABSTRACT

The principal investigator proposes to study three problems in
the area of partial differential equations, namely the nonlinear
two-phase elliptic free boundary problem, symmetrization for diffusion
equations with bounded measurable coefficients and symmetric behavior
of solutions of nonlinear parabolic equations. These problems defy
the standard treatments which succeed in solving linear problems or
equations in divergence form because of their nonlinear or non-divergent
structural nature. Therefore, solution of these problems will not
only contributes knowledge about these partial differential equations,
but also inspires new ideas which will most probably prove useful
in studying other nonlinear partial differential equations or
equations of other types. The suggested methods in this proposal
either successfully solved part of the problems or are motivated by
the ideas that are most likely to lead to the solution of these problems.

The study of the theory of nonlinear elliptic and parabolic partial
differential equations and diffusion processes becomes increasingly
important in the area of partial differential equations. The problems
studied by the principal investigator in this project motivate ideas
that lead to the creation of some methods that might succeed in
treating other partial differential equation problems as well. Solving
these problems gives affirmative answer to the question of the well-
posedness of these mathematical models which originate in physics and
other disciplines. In addition, the theoretical treatment of these
problems will shed light on the numerical solution of these and related
problems. Taking into account the origins of these problems, one is
liable to believe applications of the theory about these problems can
be sought in disciplines other than mathematics.